NSFNET Connection for Lane Community College

9417216 Keizer This project connects Lane Community College to the Internet over a 56kbps line. Faculty and students at the schools benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.